Industry/University Cooperative Research Activity: Thermal and Optical Properties of Liquid Crystals (Materials Research)

This is a cooperative research project whose goals are to understand fundamental properties of liquid crystal phase transitions and to develop techniques for measuring thermal properties, thermal conductivity, and polarization. A special high resolution ac calorimeter, developed by this group, will be used to measure heat capacity and thermal conductivity in the vicinity of various multicritical points or phase transitions. Mixtures will be used to vary temperature ranges of certain phases to work toward better understanding of the nature of the phase transitions as well as of the microscopic structures and to test theories.